SHF: Small: VeriQ: Formal Quantitative Software Verification in Realistic Application Scenarios

The goal of the VeriQ project is to develop techniques for the formal
verification of quantitative properties of software. Every program
requires a certain amount of resources such as memory, power, and
processor cycles to perform its task. A proof that the resources
provided by the hardware of the system are sufficient to safely
execute a program should be the first step in the verification of that
program. In addition to the verification of such resource-usage
bounds, there are a vast number of domain-specific quantitative
properties that are crucial for the correctness of software. Finally,
reasoning about quantities can simplify the verification of
non-quantitative properties such as termination. By advancing the
state-of-the art in quantitative verification, VeriQ facilitates the
development of reliable, efficient and predictable software systems.

The investigators focus on three technical goals that are among the
most important problems in the field of quantitative verification.
First, they develop an automatic and compositional resource analysis
for programs that are written in high-level languages with garbage
collection, side effects, and higher-order functions. Second, they
apply the techniques from resource analysis for high-level languages
to simplify the reasoning about quantitative properties of realistic
system code with concurrent execution and advanced control flow.
Third, they investigate the relationship between quantitative
properties and liveness properties with the goal of utilizing
quantitative reasoning techniques in correctness proofs of software
verification.